CISE Research Resources: A Proxy-Centric Testbed for Mobile Internet Research

EIA-0130724
Philip McKinley
Michigan State University

CISE Research Resources: A Proxy-Centric Testbed for Mobile Internet Research

The Department of Computer Science and Engineering at Michigan State University will construct a state-of-the-art testbed for research in protocols and services surrounding the mobile Internet. The testbed will comprise four major components: (1) a high-performance parallel proxy cluster interconnected by a gigabit Ethernet switch; (2) new generation 802.11a wireless network components with bit rates up to 54 Mbps; (3) a wireless network analyzer that enables detailed inspection and analysis of conditions and behavior of the wireless network; and (4) a set of mobile hosts for collecting experimental data. The primary mission of the testbed is to support three research projects related to mobile Internet environments: design of new network protocols to improve the observed performance of wireless channels in transporting multimedia data; study of adaptive middleware services to support collaboration among heterogeneous mobile hosts; and the use of formal analysis techniques to support automated development and testing of interactive distributed applications.